Dirichlet Forms Over Holomorphic Function Spaces

Abstract
Gross

This award is for partial support for three graduate students studying under Gross's supervision. The topic under consideration is the actions of semigroups in holomorphic function spaces.